The Temporal Structure of Urban Residence

9308889 MYERS Most research on urban residential mobility treats the housing stock and the households moving through it as separate objects of analysis. Housing research has been conducted with only slight regard to population dynamics, and population research has under-emphasized the housing in which people live. Both housing units and households have life cycles which are joined together by an occupancy of some duration. This linkage between specific housing units and specific households requires study in order to gain a better understanding of urban residential structure. This research project will test a theory of the role of time in urban residential structure and housing relocation by integrating housing stock, population, and the residential mobility process that links the two. It uses a model of cohort layering to integrate housing construction and aging, cohorts of householders, and occupancy cohorts defined by year moved into the unit, thus joining the histories of individual households and housing units. This framework will be used to test for differences in residential mobility rates observed across metropolitan areas in the United States. Multivariate models will be estimated to explain the persistence of occupancies from 1980 to 1990 for different types of households and dwellings under different metropolitan conditions. Data will come from the Public Use Microdata Sample of the U.S. Census. Age of housing is an important factor in residential mobility of households, but it is unclear what role housing plays in this process. This research will combine both spatial and temporal dimensions of household residential mobility to give a clearer understanding of how households and housing units combine in time and space to define rates of residential mobility in urban areas. The model to be developed through this research will be able to be implemented with readily available census data for any location in the nation, which will make it of use to both researchers and policy planners wishing to understand how housing age affects relocation. ***